Santa Ana - Fullerton Elementary Mathematics Project (SAFEMAP)

This project will use the new California Framework for Mathematics as a model to merge the content and methodology needs into an inservice package for 66 elementary teachers in the Santa Ann Unified School District and the Diocese of Orange. The project has two goals: (1) Indentify and support ethnic minority school children who have mathematics potential, (2) help teachers of K-6 improve their skills in mathematics content and mathematics teaching. The project represents a university's partnership with a school district and parochial diocese that have school populations that are over 75% Hispanic, an ethnic group that is underrepresented in professions requiring mathematics and scientific preparation. There is evidence that at the elementary school level, Latino children show promise of success in these areas, but this is not fulfilled at the high school or college level. The project seeks to improve this discrepancy by identifying children who show mathematical promise, involving parents through a home-school linkage and training teachers to develop childrens' mathematical potential. This project addresses a major priority of the Division of Teacher Preparation and Enhancement to extend opportunities in mathematics to all students. The instructional team of four have expertise in content and experiences in teaching and bilingual-bicultural education to meet these needs.